NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1998

Abstract DBI-9803896 Fredericka A. Kaestle This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1998. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled Y chromosome and mitochondrial DNA variation in the Pacific: evidence for prehistoric population movements. Y-chromosome and mitochondrial DNA markers are being examined from individuals from New Guinea and Australia to investigate maternal and paternal patterns of gene flow with regards to the peopling of the Pacific. Estimates are being made of the timing and nature of these diasporas and the relationship of these peoples to other worldwide populations.